An ARK on the SEE: Sustainability, Energy and the Environment

This engineering education research award to North Carolina State University will addresses energy and environmental issues in creating academic as well as non-academic forums in which students are expected to learn and interact with professionals. The project is composed of three main components. The first is curriculum development, where instructional modules will be prepared and courses will be developed or modified to include sustainability content. The second will enhance the existing REU programs in Green Chemical Engineering and Sustainability, Energy and Environment. The third element of the project will be the development of web-based instructional materials. Existing technologies will be evaluated to extend learning communities so that students can be connected with representatives from industry, government and alumni for professional development and data exchange. The proposed work will improve engineering education through integration of sustainability concepts and experience so that students will be better prepared for engineering jobs of the future.